Development of A Magnetic Sensor Based Real-Time Motion Analysis System with Application to Rehabilitation and Sports Medicine

9709199 Kolen The objective of this project is to develop a system based on magnetic sensors for real-time, high-resolution kinematics imaging of human motion. The system would utilize the earth's magnetic field as a common frame of reference. It is proposed that during the first two years of this research a 16-sensor system utilizing surface mount technology would be assembled and tested. In addition to hardware, software would concurrently be developed to support real-time data acquisition and sensor array linearization, compensation and error correction. The third year of the research would be directed towards the construction of at least three complete systems incorporating multichip modules for additional miniaturization. ***